Digital Protocol Hierarchy Analysis and Synthesis

A fundamental problem in system level synthesis is the difficulty of
incorporating interfaces with pre-defined protocols as constraints. This
has lead to a mixed level specification approach that is difficult to
create, limited in generality and difficult to verify. In this research, a
alternative hierarchical model for a generic digital system design is being
developed based on a non-deterministic finite automata to capture system
protocol and communication constraints as well as the required control and
data-flow activity. Such models are suitable for exploration using BDD
symbolic traversal techniques. They provide a mechanism for systematic
data-flow synthesis that meets complex communication constraints. Issues
addressed in this project are: a) formulating an efficient representation for
a "causal automata" which represents the essential control and data-flow
dependencies for the system; b) formulating a mechanism for hierarchical
abstraction to support large, complex systems; c) pruning techniques on
implicit state traversal when used in synthesis; d) distributed controller
synthesis meeting scheduling goals imposed by the above analysis.
Software tools developed under this project are being distributed via the
Internet.